The Onset of Star-Formation Quenching in Massive Galaxies in the Early Universe

The rate of star formation peaked when the Universe was 3 billion years old. Curiously, when you look back even further in time, when the Universe was only 1-2 billion years old, some galaxies have seemingly already completed their growth, becoming very massive, with little ongoing star formation. Finkelstein and his team will use data from the Spitzer/Hobby-Eberly Telescope Dark Energy Experiment Exploratory Large Area (SHELA) survey to discover and catalog 5000-10,000 massive galaxies and quantify how many are quiescent. To investigate why these galaxies had such a short and effective growth spurt the team will make a detailed comparison to simulations, deciphering which combination of physical processes reproduce the observations. A cohort of undergraduate students will be paired with graduate students to form the first Vertically Integrated Project Team at UT Austin. Secondary school teachers will attend a residential workshop at McDonald Observatory, resulting in ~4,500 students learning about this research through classroom activities during this 3-year project.

The 23 square degree SHELA survey consists of optical imaging from the Cerro Tololo Inter-American Observatory/Dark Energy Camera (5-sigma depths of ugriz=25-26.5 AB mag; Y=22), near-infrared imaging from the Kitt Peak National Observatory Mayall 4 m Telescope/National Optical-Infrared Astronomy Research Laboratory’s Extremely Wide-Field Infrared Imager (K=23) and the Visible and Infrared Survey Telescope for Astronomy (J=21.3, K=20.9), mid-infrared imaging from Spitzer/Infrared Array Camera ([3.6], [4.5]= 22.3 mag), as well as coverage in the X-rays from the Chandra X-ray Observatory and sub-millimeter from the Herschel Space Observatory. Finkelstein and his team will leverage this order of magnitude increase in sample size to i) publish a multi-wavelength photometric catalog of massive (log M/Msol > 11) galaxies at 3<z<5, robust against both Poisson and cosmic variance; ii) measure the quiescent fraction as a function of stellar mass and redshift; iii) perform a critical analysis of contamination rates in the quiescent galaxy sample using spectroscopic observations with the Atacama Large Millimeter/submillimeter Array and the Keck/Multi-Object Spectrometer For Infra-Red Exploration, and iv) compare the data to multiple theoretical simulations to explore which simulation best matches the observations.